Active Layer/Landscape Interactions: A Retrospective and Contemporary Regional Approach in Arctic Alaska

This award is part of the Arctic System Science (ARCSS) Program, a U.S. Global Change Program. The research project relates changes in the thickness of the active layer to variations in seasonal climate across representative Arctic Alaska landscapes. A network of long-term observational sites, based at locations with histories of prior studies and data will be established. The primary focus of this study will be a thin layer of soil above the permafrost which thaws and freezes on an annual basis and is known as the "active layer". This soil-active layer mediates biological, biogeochemcial, hydrological, geomorphic, and other heat and mass transfer processes. This project is a component of a larger interdisciplinary program known as the ARCSS FLUX Program.